U.S.-Germany Cooperative Research: A Formal Methods Tool Suite for Education

0129163
Raines
This award supports Ronald Raines and students from the University of Wisconsin-Madison in a collaboration with Renate Ulbrich-Hofmann of the Department of Biochemistry and Biotechnology at the University of Leipzig, Germany. The aim of the international project is to use intein-mediated protein ligation to create semisynthetic variants of ribonuclease A. These variants will be produced by the US group and studied with respect to their thermodynamic and proteolytic stability by methods established in the German group. The results will provide new insight into protein-folding pathways and the fundamental basis for protein stability, and ultimately lead to the creation of new proteins with desirable properties. The work plan provides for extensive participation by graduate students in the international travel and research.